XYZ on a Chip: Development and Fabrication of Three-Dimensional Microdevices

The use of silicon-based technology, originally developed for microelectronics applica-tions, in the fabrication of microelectromechanical and microfluidic structures has ushered
in a new era in which complex tasks can be performed by efficient, miniaturized devices.
However, one limitation of the current generation of silicon-based technologies is that it is
extraordinarily difficult to fabricate devices have a significant number (>4) of functional
layers. The number of potential applications of microdevices would expand geometrically
if it were possible to fabricate microdevices that were not constricted by the present layer-by-
layer fabrication scheme, but instead were truly three-dimensional.
We are proposing to develop and utilize a completely new set of technologies for non-silicon-based microfabrication of true three-dimensional devices. Our scheme takes ad-vantage
of multiphoton absorption (MPA) interactions that occur selectively at the tight fo-cus
of a laser beam to attain high three-dimensional resolution. The proposed technology
begins with a nanoporous matrix that is solidified and etched selectively in different spatial
areas, based on MPA, in order to create the three-dimensional template for a microdevice.
Localized MPA-driven photodeposition and other MPA-driven photoreactions, photo-chemical
processes and photophysical processes are then used to create functional compo-nents
within the matrix, with submicron feature sizes. Through these means, it will be pos-sible
to incorporate a wide variety of functionalities in a single, monolithic three-dimensional
device.
Over the proposed three-year project period, we will develop MPA-based technologies
to make a broad range of functional fluidic, electronic, optical and mechanical components.
These components will be combined to fabricate increasingly complex three-dimensional
microdevices that will allow for the miniaturization of technologically important tasks in
areas such as combinatorial synthesis and screening of drug candidates and low-temperature
device physics. By the end of the project period we expect to be able to inte-grate
such devices directly onto silicon-based microchips.